Micro- and meso-scale strain measurements in cement-based materials

Abstract
This research initiative is to investigate the potential for using
synchrotron X-ray and neutron diffraction and Raman spectroscopy to measure micro- and meso-
scale strains in concrete materials. This is a collaboration lead
by Tennessee Technological University (TTU). Oak Ridge National Laboratory (ORNL) and the
National Institute of Standards and Technology (NIST) are partners in the collaboration.
A series of experiments will be conducted to explore the use of synchrotron X-ray and neutron
diffraction and laser Raman spectroscopy to make measurements of micro-scale strains under
stresses generated mechanically in Portland cement-based materials. Stressors will be applied by
in situ loading and diffraction measurements made to establish the stress states of various
crystalline phases including calcium hydroxide (CH), unreacted cement phases and aggregate
phases. An attempt will be made to make similar measurements on hydration product phases that
are suitably crystalline including monosulfate and those of the hydrogrossular series (C3AH6 to
C3AS3). Observations of the effect of stressors on the less crystalline hydration products
including ettringite and calcium silicate hydrate (C-S-H) will be made using Raman spectroscopy.
A broad range of mechanical loads up to near failure will be explored. Direct observation of
mechanically induced deformations will also be made using environmental scanning electron
microscopy (ESEM) and an in situ load frame.
The proposed development and demonstration of synchrotron-
and neutron-based techniques to quantify meso- and micro-scale stress and strain behavior in
concrete has broad reaching application-based implications. The results will be useful to study the impact that chemical modification of the cement
has on alkali-silica interaction induced stresses, prediction of cracking, durability
and performance as they relate to interactions such as sulfate, alkali-silica, freeze-thaw and other
environmental stressors.